Quantum Interference of Amplified Light (Physics)

The proposed research will address several fundamental issues in modern quantum optics dealing with the quantum interference of light from two independent sources. Each source is comprised of a high-gain amplifier which amplifies the vacuum field to macroscopic levels. Both phase-insensitive (stimulated Raman scattering) and phase-sensitive (optical parametric) amplification will be studied, for comparison. The phase- insensitive case will allow the first observation of interference between two independent, thermal-like light sources. The phase- sensitive case will explore the interference of two independent nonclassical light fields, for which novel features are predicted. A new concept for observing sub-shot-noise statistics is described theoretically and will be attempted experimentally.